Interagency Reimbursable Detail: Program Director for the Information and Database Management Program

IIS-9906603
Steinheiser, Rick
Central Intelligence Agency
$33,451 4 mos

This award is for an interagency reimbursable detail for Rick Steinheiser to participate in Division-wide discussions and planning activities on the subject of database management and other programmatic issues.